Bounded Queries in Complexity Theory

Complexity theory deals with how hard problems are. Recently various researchers have looked at the number of queries which must be made to an oracle in order to solve a problem as a measure of that problem's difficulty. A set is cheatable if membership of 2k strings can be determined by querying only k strings. We investigate structure, closure properties, complexity, and naturalness of both cheatable and terse sets. We also compare these notions to other concepts such as polynomial size circuits, near-testability, and-selectivity.